NSF/Alfred P. Sloan Foundation Postdoctoral Research Fellowship in Molecular Evolution for FY 1997

Abstract DBI 9750006 David M. Parichy This action funds an NSF/Alfred P. Sloan Postdoctoral Research Fellowship in Molecular Evolution for 1997. These fellowships support studies involving the theoretical, comparative, computational, and/or experimental analyses of biological patterns and processes at the molecular level within the framework of organismic evolutionary change and adaptation. These studies also include the use of molecular data to address broader evolutionary questions. Each fellowship supports a research and training plan to be carried out in a sponsoring laboratory. The research and training plan for this fellowship is entitled "Mutational analysis of pigment pattern diversification in cyprinid fishes." The patterns formed by pigment cells are useful traits for studying the molecular changes underlying morphological evolution. This project uses the advanced genetics of the zebrafish Danio rerio to identify genes contributing to adult pigment pattern differences among cyprinid fishes. The aims are to test known pigment pattern genes for interspecific differences in their activities and to screen for previously unidentified genes that contribute to pigment pattern differences across taxa.